Digital Libraries Supporting Innovative Approaches to Learning and Teaching in Geography

Proposal : IIS-0229210
Institution: University of California, Santa Barbara
PI: Michael Freeston

This project, entitled "Digital Libraries Supporting Innovative Approaches to Learning and Teaching in Geography" is a collaborative effort of University of California, Santa Barbara and the Pennsylvania State University in the USA and the Universities and Southampton and Leeds in the United Kingdom. The project also informally engages partners at other institutions. The primary aims of the proposed project are to develop a distributed enabling information infrastructure for the support of learning and teaching Geography and to devise innovative approaches to teaching and learning based on this infrastructure. The project will deliver shared UK/US electronic resources associated with course in several topic areas, including Human Geography, Geographical Information Science, Geomorphology and Earth Observation. The project will build on a variety of impressive digital resources which have been created by government agencies, universities and other organizations. A primary resource will be the Alexandria geo-referenced digital library, developed within the previous NSF-led Digital Library Initiatives.